Postdoctoral Research Fellowship in Plant Biology

9403935 Larsen This is an individual award for the Postdoctoral Research Fellowship in Plant Biology. The applicant received her Ph.D. from the State University of New York at Stony Brook. Her Ph.D. research was in the area of mammalian oncogenes. She plans to carry out her postdoctoral fellowship research in the laboratory of Dr. Carolyn Silflow at University of Minnesota. The proposed research entitled "Regulation of basal body positioning in Chlamydomonas" will expand the scientific experience of this Fellow into plant biology and cell biology.